II-NEW: Acquiring infrastructure for Artificial Intelligence, Natural Language Processing and Information Retrieval

This proposal seeks to obtain funding to acquire computing
infrastructure to perform cross-disciplinary research in artificial
intelligence, natural language processing, bioinformatics, social
networks and related fields. In particular, the projects that will
be supported by the infrastructure acquired include developing algorithms
and architectures for large-scale ontology alignment, particularly in
the biomedical domain; mining Wikipedia and similar Web-based sources
for geographical, temporal and ontological information; performing
named entity recognition in biomedical and other domains; performing
computational motivational and content analysis of socially generated
content such a blogs and micro-blogs; undertaking corpus-based computational
linguistics research in under-studied and possibly endangered languages from
India and other locations; developing better-performing algorithms for gene
expression analysis; and developing, implementing and comparing algorithms
for protein structure prediction, particularly proteins that contain
coiled-coil structures. These projects deal with large amounts of data
and information and processing such data and information requires large
amounts of computing power. Our proposal seeks to acquire adequate and
flexible computing hardware to facilitate problem-solving in these and other
areas, so that current and future problems can be solved felicitously.

The infrastructure acquired will enable cutting-edge research by Ph.D.,
Masters and undergraduate students, including REU site students, in a
variety of cross-disciplinary topics that employ ideas and innovations
in artificial intelligence, machine learning and information retrieval.
For example, the results of our research may enable creations of systems
that discover overlaps and matches among large medical ontologies so that
painstakingly created domain-specific information can be fused, compared
and utilized better; and may assist in creating programs that assist in
automatically understanding and/or visualizing content of socially-generated
Websites such as Wikipedia and Twitter.

For further information see the project web site at the URL:
http://www.cs.uccs.edu/~kalita.